Studies of Relativistic Heavy Ion Collisions at CERN and RHIC

9511850 Humanic Research will be carried out in relativistic heavy ion nuclear physics. Experiments will be conducted at the CERN, AGS, and RHIC heavy ion accelerators. The main goal of these experiments is to obtain evidence that collisions of relativistic heavy ions with sufficiently high energy produce a phase transition from normal nuclear matter into a new phase of matter made up of a large volume of free quarks and gluons. The above named accelerator facilities provide a range of energies needed to raise the energy density to more than ten times normal nuclear matter density, thought to be sufficient to produce deconfined quark and gluon matter. Experiments will be designed and carried out which look at the signatures of a quark-gluon plasma as reflected in particle momentum distributions and multiplicities of each type of particle produced. Development work will be carried out for purpose of producing a detector system with sufficient individual particle tracking and identification capability to handle the huge particle multiplicities expected from central heavy ion collisions. Some calculations will be carried out to determine expected interaction regions within the colliding systems. In addition, lower energy charge exchange reaction measurements will be completed which bear on the density dependence of nucleon-nucleon interactions. Research in these areas will advance our understanding of the underlying quark model of nucleons and mesons. These topics are among the most exciting in nuclear physics. Education of graduate students and postdocs is integral to this activity, as is development and construction of major state-of-the-art equipment ***